CodePractice: Developing Coding Skills Using Social and Adaptive Drill-and-Practice Exercises

Rudimentary programming skills are essential to developing fundamental proficiency in computer
science. However, learning programming techniques can be challenging and frustrating for many
students. Without interventions to curb these frustrations, introductory computer science courses will
suffer from attrition and poor retention rates will follow. Drill-and-practice tools are emerging to help
students develop basic programming techniques and improve their confidence. However, there are
currently no programming practice systems that actively and adaptively assist students when they
require help on exercises. Likewise, the potential for peer learning is currently untapped without
effectively leveraging online, social collaboration in practice tools.

The novel approach to organically refine learning materials also offers broader implications for using
automatic assessment in social eLearning environments. We will study students’ behaviors with the
system and objectively measure their outcomes. Consequently, our research will offer results associated
with a framework for supporting social and adaptive drill-and-practice. Overall, we expect to improve
student performance and retention in computer science while contributing to the evolution of instructional
technology.